Student Travel Support for the 23rd ACM Symposium on Operating Systems Principles (SOSP 2011)

This award provides funding to support the travel of 13 US-based graduate students to attend the
23rd ACM Symposium on Operating Systems Principles (SOSP 2011) which is held in Cascais, Portugal.